PECASE: The Integration of Education & Research in Transportation Engineering

Abstract Proposal: CMS 97-02561 PI: Linda K. Nozick, Cornell University "Career: Integration of Education and Research in Transportation Engineering" This research focuses on the development of more robust methods to optimize the routing and scheduling of hazardous materials shipments. Analyses with which these decisions are currently made fail to fully consider the multi- objective nature, the stochastic elements, and the inherent time dependency aspects of this problem. The research will develop advancements in multi-objective network analysis and methods to identify the appropriate scope of analysis given the decision situation. Careers in transportation are increasingly systems-oriented, extend beyond the bounds of traditional civil engineering, focus on opportunities for the inclusion of non-traditional resources to cope with increasing financial and environmental pressures, and involve multiple stakeholders often with conflicting objectives. Therefore, transportation professionals are increasingly being asked to conduct analyses which are multi-objective, involve the evaluation of the inclusion of "non-traditional;" resources and high levels of uncertainly. For these reasons, the teaching activities to be accomplished here involve the redesign of three courses at the undergraduate level. At the M.S. level, the activities focus on the creation of two semester, real-world team design projects which incorporate many of these same elements and ask the students to propose creative solutions which can be realistically implemented based on sophisticated analyses. The characteristics of hazardous materials transportation decision situations include all the elements necessary to provide an excellent set of homeworks and projects for both the undergraduate level courses and the master's level projects. ***